SBIR Phase I: A Novel Heat Dissipation Product for Chip Testing and Internet of Things

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is intimately tied to the significant increase in transistor density that semiconductors have experienced over the past few decades. This has enabled many technological advances ranging from high performance servers to Internet of Things devices. Still with every advance in chip technology the pain points related to chip cooling continue to increase. Conventional thermal interface material (TIM) solutions, particularly in high temperature applications, fall short. Three major TIM market segments exist: polymer composites, metallic materials and phase-change materials. Commercial carbon nanotubes (CNT) will create a fourth market segment that will supplant existing TIMs, initially in the chip testing market and eventually extending into servers, high performance computing and Internet of Things devices. CNT researchers and small businesses have made little progress towards a commercial TIM product. Among other factors, this failure is driven by poor positioning in the crowded low-cost TIM space, which is currently dominated by thermal greases and pads. Progress towards a viable solution lies in the strategic alignment of product features with industry pain points. This Phase 1 SBIR aims to develop a CNT based thermal interface material capable of capturing this chip testing product opportunity.

This Small Business Innovation Research (SBIR) Phase I project This Small Business Innovation Research (SBIR) Phase I project aims to develop an innovative carbon nanotube (CNT) based thermal interface material (TIM) that demonstrates chemical stability and low thermal resistance in high temperature applications. The primary focus of this Phase I SBIR is a durable, fungible, and low resistance thermal interface material that will be transformative to the chip testing market. To this end, a TIM will be developed for the chip testing market that can maintain its thermal performance over 2,000 thermo-mechanical cycles - an extension of several multiples of the expected service life of a burn in TIM. Furthermore the CNT-polymer composite TIM will be capable of seamlessly accommodating changes in die size during its expected lifetime. Finally, the technology will deliver industry leading thermal resistances in preparation for an eventual transition to competition in the server, high performance computing and Internet of Things market.